RUI: Effects of Continuum Structure in Photodetachment and Recombination Processes in Atomic Theory

9408866 Haan The project involves investigations into 1) photoionization and photorecombination processes in atomic systems, 2) strong field interactions using model potentials and 3) numerical calculations of photoionization of two electron systems. Density matrix formulations will enable open systems to be investigated where these processes might interfere and the use of a time dependent evolution of the wavefunction enables a clear visualization of the breakup process in strong fields. ***